NSF Young Investigator Award

Cai 9457534 This project is to design and implement fast, scalable, parallel algorthims for the numerical solution of large systems of equations arising from various finite difference/finite elelment/finite volume approximations of linear and non-linear partial differential equations (PDEs).